Special Project: An International Workshop on Computer Science and Engineering Accreditation; November 11-12, 1996, Salt Lake City, Utah

9612360 King, Willis IEEE Computer Society Special Project: Annual International Workshop on Computer Science and Engineering This proposal, from the IEEE Computer Society, partially supports an International Workshop on CS and CE accreditation. Selected visitors from foreign countries will be brought to the meeting November 10-11, 1996, immediately following the FIE Conference in Salt Lake City, Utah. Goals include the understanding of educational objectives and standards of different nations, to attempt to form a common set of criteria for accreditation and to work toward mutual recognition of computing degrees among nations. The workshop is an IEEE-CS initiative and the Computer Society will provide 50% of the total cost. Other cooperating societies include ACM, ABET, CSAB, and IEEE. ***